MRI: A Study of the Geoid Anomalies and Sea-Floor Topographyin the Central Pacific Ocean

The project is to analyze the 2000-3000 km scale geoid anomalies and the corresponding sea floor topography in the central Pacific to determine their source and determine the mode of convective motions in the mantle. The essence of the problem is how to get temperature anomalies to shallow depths in the mantle. The PI proposes to address this question by two- dimensional finite difference numerical modeling of high Rayleigh number, infinite Prandtl number Boussinesq fluid convection with temperature and pressure dependent viscosity. %%% One of the fundamental problems in earth sciences today is to understand how motion of the earth's mantle occurs and how that motion can be deduced from an examination of things we can observe at the earth's surface. Seafloor bathymetry and the earth's gravity field are observables that are related to mantle motions. In this work models of a variety of types of mantle motions will be developed and their gravity and bathymetric signals calculated and the results compared to anomalous features of the observed field. These calculations should help deduce which classes of mantle motions are most probable.